Research Experiences for Undergraduates in Chemistry at Clemson University

9322160 Parsons Dr. Edith J. Parsons and other members of the Chemistry Department of Clemson University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period of 1994-96, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry- analytical, inorganic, organic and physical. Students will be primarily from the ten-state region surrounding Clemson.